Mathematical Sciences: 1993-94-95 AMS-IMS-SIAM Summer Research Conferences in the Mathematical Sciences

The project will support the Joint Summer Research Conferences in the Mathematical Sciences, administered by the American Mathematical Society, the Society for Industrial and Applied Mathematics and the Institute of Mathematical Statistics. Between six and ten one or two-week conferences have been held annually since 1982 on a broad range of mathematical topics. The 1993 Summer Research Conferences will be held during the period July 10 - August 6, 1993 at the University of Washington in Seattle, WA on the following topics: (1) curvature equations in conformal geometry, (2) multivariable operator theory, (3) spectral geometry, (4) recent developments in the inverse Galois problem, (5) mathematics of superconductivity, (6) distributions with fixed marginals, doubly stochastic measures, and Markov operators, and (7) applications of hypergroups and related measure algebras.